Microcomputer-based Undergraduate Experiments in Laser Spectroscopy and Atomic Collision Phenomena

Exposure to modern instrumentation and techniques are essential to the development of today's physics major and tomorrow's physicist. The Physics Department will introduce new, microcomputer-interactive experiments in laser spectroscopy and atomic collision phenomena into the laboratory program. Development of the proposed experiments will involve advanced students in independent study and senior thesis projects. Ultimately the apparatus will be used in the sophomore level Laboratory Physics course, which is required of all physics majors.